A Climatic Analysis of Long-Term Ecological Research Sites

9416820 Greenland The investigators will perform a comparative climatological analysis of the LTER sites. The intersite analysis will include four items: 1. a systematic time series analysis of temperature and precipitation records of all 19 LTER sites using the same methodology for each site; 2. a compilation of projected climate change scenarios from a range of climate model experiments interpolated to LTER sites and regions and a discussion of uncertainties associated with these projections; 3. descriptions of the climate and water budget of the LTER sites; 4. a comparative analysis of the climate of all 19 sites, including analyses of regional climates for the sites. The analysis will be published as an electronic book by means of the LTER Network MOSAIC information system as well as an LTER Network paper and will also be submitted for publication in peer reviewed journals.